Physical Applications of Algorithmic Complexity Theory (Physics)

Algorithmic complexity theory will be used to investagate 1) the correspondnece principle for quantum systems whose classical counterparts are chaotic 2) the concept of minimum error in measurement theory and 3) the smooth boundary limit of the quantum motion of polygonal billiards.